MIE: Educational Strategy for Fostering Excellence and Increasing Minority Graduates in Sciences, Engineering and Mathematics

9354117 Okereke Central State University (CSU) intends to maintain excellence in its educational mission and its successes in developing new and innovative programs within the last decade in the Sciences, Engineering and Mathematics. CSU will improve, strengthen and expand these programs in science, engineering and mathematics, as well as introduce other new and innovative programs. The university intends to develop plans to further strengthen its centers of excellence in manufacturing engineering, water resources management and Center for Scientific Visualization and the Center for Applied Mathematics, as well as the traditional physical and natural science departments such as biology, chemistry, mathematics and computer science, and physics. One of the goals of the effort is to significantly increase the number and quality of minorities that enroll in, and graduate form, the science, engineering and mathematics programs at the university. The other is to increase the number of these graduates who go to graduate school to earn advanced degrees in the physical and natural sciences. Ultimately, the achievement of these goals will significantly expand the pool of minorities who opt for careers in the physical and natural sciences. CSU hopes to achieve these goals by evaluating the existing programs that impact the enrollment, retention, and ultimately the graduation of its students in the sciences. Activities such as recruitment, advising, mentoring, tutorial assistance, curriculum development, and the availability of scholarships and financial aid will be reviewed. Other programs such as library facilities, student living environments, laboratory facilities and research participation by undergraduate students would also be evaluated. The goal of this comprehensive evaluation is to identify and reinforce program and institutional strengths and to correct the underlying weaknesses.